Improving the Rational Synthesis of Phase-Pure and Size-Controlled Multinary Sulfide Nanocrystals through a Mechanistic Understanding of Precursor Conversion Reactions

Professor Sidney Creutz of Mississippi State University is studying the mechanisms of semiconductor nanomaterial growth from molecular precursors. Because of their unique properties and interactions with light, semiconductor nanomaterials (including “quantum dots”) have diverse applications in light emission, detection, and absorption. However, technological applications of these materials will require robust, reproducible, and tunable synthetic pathways to their formation. In this work, Prof. Creutz and his research group will investigate in detail the conversion mechanisms of a class of molecular precursors called metal dithiocarbamates to better understand how the precursor structure, metal ion identity, and composition of the reaction mixture direct the growth of the nanomaterials. Through this work, they will gain fundamental and general insight into solution-phase nanocrystal growth that will be applicable to a wide range of technologically important materials. Additionally, they will develop educational activities about semiconductor nanomaterials appropriate for K-12 students that require minimal equipment, with the goal of helping to encouraging students to pursue further education and careers in chemistry and materials science.

Professor Sidney Creutz of Mississippi State University is studying the kinetics and mechanism of how dialkyldithiocarbamate metal complexes and related molecular precursors decompose to produce metal sulfide semiconductor nanomaterials in alkylamine solution at relatively low temperatures. The research team will, for example, investigate how these kinetics are influenced by dithiocarbamate-metal binding equilibria and the presence of acidic and basic species in the reaction mixture. They will use these reactions as model systems to probe the early steps of nanocrystal nucleation using advanced nuclear magnetic resonance (NMR) techniques and to understand how autocatalytic pathways for precursor decomposition influence the kinetics and reproducibility of nanocrystal nucleation and growth. The results will be leveraged to develop new synthetic pathways to new and emerging multinary sulfide nanomaterials of interest for technological applications, and similar studies will be carried out on related precursors such as selenocarbamates and xanthates. Experimental studies will be closely integrated with computational mechanistic studies using density functional theory (DFT). In addition to training undergraduate and graduate students in nanomaterials chemistry through this work, new outreach activities designed to broaden interest in semiconductor nanomaterials will be developed and disseminated.